Integrated Wind Energy Systems for Polar Applications

9361143 COLEMAN This project will develop wind turbine technology for polar applications as an avenue to expanding the ability to develop wind and wind hybrid energy projects in cold weather and polar environments. The development program will be focused on the identification of technical problems, specifically related to the polar environment, and performing analysis, detailed engineering and conceptual designs to address the specific set of identified concerns. The outcome of the program will be the development of wind turbines for a wide range of commercial cold regions applications. These new turbines will fill a void in the current marketplace, and may make a significant reduction in cost of electrical energy in polar regions. ***